YSP: CSRA Summer Science Research Program for High School Students

The Ruth Patrick Science Education Center at the University of South Carolina at Aiken will initiate a six-week, multidisciplinary, commuter Young Scholars project in Microbiology, Chemistry, Chemical Engineering, Environmental Science, Mechanical Engineering and Computer Science for 18 students entering grade 12. Participants will conduct six weeks of research under the supervision of local scientists/engineers whose interest are in one of the above- mentioned disciplines. Weekly group meeting will focus on ethics, careers and public speaking. A formal written and oral report will be required at the end of the summer session. During the academic school year students will make three additional presentations; at their school, at the CSRA Science Forum and at the South Carolina Junior Academy of Sciences and/or the Georgia Science and Humanities Symposiums.